Mathematical Sciences: Partial Differential Equations and Harmonic Analysis

Research in three areas of mathematical analysis will be supported by this award. The theme of the work revolves around partial differential equations defined on domains with nonsmooth boundaries and inverse problems related to such equations. The first areas concerns computational algorithms for approximating the inverse of classical layer potentials on nonsmooth domains. One is interested in determining mathematically justified numerical schemes for approximating inverses of boundary integral operators arising from layer potentials. These potentials are associated with boundary value problems for second order partial differential equations and systems. A second line of study concerns Fatou theory and potential theory for nonlinear elliptic equations and linear parabolic equations with nonsmooth coefficients. The goal is to determine exactly how solutions, defined on the interior of a domain, change as the boundary is approached in a nontangential direction. The final goal is to establish sharp boundedness estimates for classes of functions on nonsmooth domains in the form of multiplicative norm inequalities involving a second or higher order elliptic operator on the functions of involving the Stokes operator in the case of a vector=valued function.The analysis of partial differential equations on nonsmooth domains is an subject of intense recent activity in mathematical research. It has been possible to make steady headway on problems once thought to be out of reach. Aside from their intellectual challenge, these problems have a practical side -most phenomena in the physical world which can be modeled by differential equations are burdened with rough boundary conditions. This type of research validates information only obtained intuitively or through computation.